ASEE Continuing Education for Engineering Faculty

The American Society for Engineering Education (ASEE) program, Continuing Education for Engineering Faculty, consists of 8 short courses directed at improving the undergraduate engineering faculty's knowledge of new and developing technical subjects. These concentrated courses will be offered in a series of 10-day sessions during the summer of 1988 at host university and industrial sites in the United States, including MIT, Polytechnic University in New York, Georgia Tech., RPI, University of Illinois-Urbana-Champaign, AT&T Bell Labs., IBM, Rice University, State University of New York at Binghamton, and the University of Michigan. Courses will be taught by top faculty members or industrial instructors, based on well-developed undergraduate courses. Course offerings will provide engineering faculty with technical and pedagogical information in fields related to their own specialties. Through lectures, hands-on laboratory activity, and interaction with instructors, they will learn to incorporate new material and teaching techniques in revising existing courses and developing new ones. Evaluation of learning achieved and faculty attitudes toward the program will be assessed and used for refining the program. Although current courses are concentrated in electrical engineering and computer science, future courses will be expanded to include other fields of engineering. In addition to the NSF funds, participants will contribute about 60% in travel and subsistence toward the cost of the program. Also, industrial support for 3 of the courses will provide another 60%. Finally, ASEE and MIT will contribute about 15% in staff time.